Mathematical Sciences: Differential Geometry and Riemannian Submersions

9322673 Walschap The scope of research covers the differential geometry of metric and totally geodesic foliations on Riemannian manifolds with focus on curvature questions. The latter involve techniques from ergodic theory and topology to analyze growth conditions. This research has potential applications to mathematical physics. ***